Integration of Bioseparations into the Chemical Engineering Curriculum

The purpose of this project is to establish laboratory instruction in bioseparations within the chemical engineering undergraduate curriculum. The laboratory includes bench-scale bioseparation and supporting equipment, including a microcomputer-based data acquisition and control system. This collection of equipment permits students to apply their theoretical knowledge of bioseparation techniques and integrated downstream processing through laboratory experimentation, exposes them to analytical methods and techniques in biochemistry, automates the control and data acquisition of the experiments and familiarizes students with modern computer control and data logging equipment and techniques. This award is being matched by an equal sum from the grantee.